1,2,3 Ready, Set, Go! Math For Young Children And Families

9725857 Vergeront The Minnesota Children's Museum, in collaboration with the American Library Association will develop a project to engage children ages two through seven years old and their parents in exploring mathematics through hands-on, book-based math activities in libraries and children's museums across the country. The main elements of the project are: 1. A 1200 square foot exhibit at the Minnesota Children's Museum; 2. A traveling exhibit to ten children's museums over a six month period; 3. Five smaller versions of the exhibit will travel to 75 libraries sponsored by the American Library Association. Each library that apply for the exhibit must present a plan in which 50 percent of their exhibit audience will be children and families of the under-represented, lower income groups, and racial and/or ethnic groups. 4. Programs and materials will be designed to provide parents with the means to actively participate in their children's math education. The collaboration of the Minnesota Children's Museum and the American Library Association draws together two organizations whose natural constituencies are parents with young children. Project 1,2,3 is designed to be national in scope and creates multiple formats within which families can enjoy exploring math. Its goals and objectives reflect four messages: start early, math is everywhere, parental involvement and get into books. The project Principal Investigator (PI) Ms. Jeanne W. Vergeront received her Bachelor of Arts and Masters of Science in Child and Family Studies and Environmental Design, respectively from the University of Wisconsin, Madison. Currently, she serves as the Vice President, Educational Projects at the Minnesota Children's Museum in St. Paul, Minnesota.